U.S.-Vietnam Joint Workshop: Collision-Related Mantle Flow Fields Beneath East and Southeast Asia

0129492
Russo

This is a workshop proposal submitted by Dr. Raymond Russo, Northwestern University, and Dr. Martin Flower, the University of Illinois, to request travel expenses to enable 15 U.S. scientists to attend workshop on collision-related mantle flow fields beneath East and Southeast Asia. The meeting will be held in Halong Bay, Vietnam, from January 6-16, 2002. The topic of the workshop is important for earth sciences and for understanding the India-Eurasia plate collision, which is the largest continental collision in the world. The proposed list of participants is impressive, including younger, women and minority scientists from U.S. institutes, and represents many earth science disciplines. Participation in this workshop by U.S. scientists will likely result in a number of new collaborative studies between the U.S. and Vietnamese scientists. The NSF and the Geological Survey of Vietnam jointly support this workshop.